Cooperative Research on Seismic Resistant Design of Low-Cost Housing Units

PI: James K. Wight, Univ. of Michigan

Technical Merit:
For most major earthquakes, the largest loss of life is typically caused by the total or
partial collapse of low-cost housing units that have not been adequately designed and/or
constructed to resist seismic forces. The purpose of this proposal is to launch an
exploratory investigation of the use of high performance concrete for the construction of
low-cost seismic resistant housing units. The high performance features to be studied
include self-compacting concretes and the additional of a low percentage of steel fibers to
the concrete mix. Designs for both precast and cast-in-place housing units will be
investigated.

Broader Impact:
This proposal will be used to initiate a long-term cooperative research effort aimed at the
development of a variety of standard designs for low-cost housing units in moderate to
high seismic risk zones. The development of such standard designs should prove to be
very beneficial throughout Mexico, as well as other Central and South American
countries that have access to similar construction materials for low-cost housing. A
short-term goal of this cooperative research effort will be the development of proposals to
use the NSF-NEES facilities to dynamically test these standard housing units. The long-
term goal is the reduction in loss of life in future earthquakes.